Meteorology of Transport and Deposition Over the North Atlantic

Over the past 10-15 years atmospheric chemistry has evolved from a young research discipline devoted primarily to local problems of urban pollution and air quality to a mature science concerned with the hemispheric to global scale cycling of a wide variety of chemical species. To a large extent this change has resulted from an increasing realization that human activities can cause chemical disturbances to the natural troposphere on scales far beyond local concerns. Well-known examples include changes in the regional-to-global concentrations of certain nitrogen compounds, lead and other heavy metals, artificial radionuclides, a number of synthetic organic substances, certain acid-forming species, carbon dioxide and methane. These chemical changes in the atmosphere can often extend to the earth's soils, oceans, and biota far from the original source region. They can result in alterations in the earth's climate, changes in vital nutrient cycles, and impact significantly on the public health and quality of life on earth. The Atmosphere/Ocean Chemistry Experiment (AEROCE) will be a coordinated multi-institutional atmospheric and marine chemistry research project centered in the North Atlantic region. The ultimate goal of the AEROCE project will be the development of a predictive capability for the continentally derived species observed in the marine troposphere over the North Atlantic. The selection of sites and the measurement protocol in AEROCE has been developed jointly by modelers and field experimentalists. This project is to be a meteorological research and support element of the Network Studies portion of the AEROCE effort. The specific objectives of this research element are: the determination of the height and structure of the atmospheric boundary layer at each site using routinely observed meteorological sounding data; understanding the large scale transport processes at each site for the duration of Network sampling using isentropic trajectory analysis techniques; and assessment of the rates of wet removal over the North Atlantic by compiling a basin-wide rainfall climatology for the region.